U-Pb Dating of Staurolite and the Determination of P-T-t-D Paths in Orogenic Belts, an Example from the Proterozoic Orogen of the Southwestern U.S.A.

9506546 Williams This project will refine and test a completely new method for dating metamorphic staurolite and other minerals in complexly metamorphosed regions, and will apply the method to the metamorphic rocks of the Southwestern U.S. U-Pb dating of a suite of metamorphic minerals will be conducted in concert with detailed porphyroblast-matrix studies, field structural analyses and metamorphic pressure-temperature studies to unravel the complex tectonic history of the middle crust of New Mexico, Arizona and the Colorado Front Range during continental assembly. The results will be of great significance to workers in complex tectono-metamorphic terranes and will have far-reaching consequences for the understanding of tectonic events in all orogenic belts.